Modeling and Analysis of Large Order Rotor Systems with Strong Local Nonlinearities

9504321 Noah Modeling, analysis and characterization of the dynamic behavior of multi-degree of freedom rotor systems with strong nonlinearities is the thrust of this research project. Analytical models of rotors and their nonlinear supports and coupling components are developed. Local nonlinearities in rotor systems are manifested in dampers, clearances and fluid interactions. Linearized analysis of industrial rotating machinery does not capture its full dynamics, and designs based upon such analyses may lead to severe malfunctions or catastrophic failures. In this project analytical/computational methods are developed for determining the nonlinear dynamic behavior of systems, including their periodic, quasi-periodic and chaotic response and bifurcation. These include the harmonic balance method, fixed point method, and their combinations. The results of this research advance the state of knowledge of nonlinear rotordynamics and leads to the development of reliable design techniques to mitigate the effects of nonlinear dynamics and chaos.***